Dissertation Research: Perceptions of Racial Inequality and the Social Construction of Environmental Justice

This dissertation research project by a cultural anthropology student at New York University involves an ethnographic study of how a recent grassroots African-American social movement for environmental justice in Augusta, Georgia has appropriated the discourse of the mainstream environmental movement and redefined it as issues of social justice. For environmental justice activists, `rights` includes access to toxin-free air and water as well as housing, schools and workplaces, all free of race and class discrimination. Through participant observation, a survey of local residents, interviews and archival research the student will test the proposition that local perceptions of racial discrimination are dominant over class or politics as perceived causes of environmental pollution. This project thus investigates the long-term impact of the civil rights movement on African Americans in this representative local Southern community. It will advance our understanding of contemporary civil society and grassroots movements by showing how rhetoric and issues flow across social lines to galvanize action on environmental issues.